Conference: International Conference on Advances in Interdisciplinary Statistics and Combinatorics (AISC-2026)

The 2026 International Conference on Advances in Interdisciplinary Statistics and Combinatorics (AISC 2026) will be held October 30-November 1, 2026, at the University of Louisiana at Lafayette in Lafayette, Louisiana. This conference will bring together researchers, educators, students, industry professionals, and government scientists to explore how quantitative methods can address complex challenges across a wide range of disciplines. By fostering collaboration among experts in statistics, mathematics, data science, artificial intelligence, healthcare, engineering, business, and other fields, the conference will promote innovative approaches to data-driven decision making and scientific discovery. The central focus of the conference is the development of the next generation of researchers through mentoring, professional networking, and student presentations. The conference will actively encourage participation from early-career researchers and students in mathematical sciences. Through its interdisciplinary scope and strong engagement with industry partners, the conference will strengthen the broader impact of mathematical sciences research on society.

AISC 2026 will feature plenary lectures, invited sessions, and contributed paper sessions. The conference will provide a forum for the dissemination of recent advances in statistics, combinatorics, data science, machine learning, artificial intelligence, statistical computing, biostatistics, and related areas of mathematical sciences. Emphasis will be placed on interdisciplinary applications that integrate methodological developments with challenges arising in health sciences, engineering, environmental studies, business analytics, and other applied domains. The conference will facilitate the exchange of ideas among academic researchers, industry practitioners, and government scientists, while promoting collaborations that advance both theoretical and applied research. The conference will also enable participation by students, postdoctoral researchers, junior faculty members, and other early-career investigators, thereby enhancing workforce development in the mathematical sciences community. Conference materials, abstracts, and selected scholarly outputs will be disseminated through conference and publication venues to maximize the long-term impact of the meeting. Conference Website: https://userweb.ucs.louisiana.edu/~C00253007/AISC2026/